CAREER: Error-Correcting Codes --- List Decoding and Related Algorithmic Challenges

Project abstract:

This project involves an integrated collection of research and
educational activities focused on the theory of error-correcting
codes. Error-correcting codes are combinatorial objects used for the
purpose of reliable communication of information over a noisy
channel. The project focuses on the asymptotic and algorithmic aspects
of coding theory, and in particular aims to construct explicit
families of codes that achieve good trade-offs together with efficient
algorithms for encoding and decoding them. The channel noise is
typically modeled adversarially (as opposed to being generated by some
probability distribution), as this will yield codes and algorithms
with the strongest possible error-resilience guarantees.

The central technical notion that will be explored is that of "list
decoding". Under list decoding, the decoder is supposed to output all
messages whose encodings are within a certain distance of the received
word. Thus one relaxes the requirement that the decoder's answer
always be unique. This relaxation is necessary to meaningfully pose
the question of decoding beyond the ``traditional'' half-the-distance
bound, and at the same time even when constrained to output a small
list, ends up permitting decoding well beyond half-the-distance of a
code. List decoding is itself an old notion (first defined in the late
50's) but it was only recently that efficient list decoding
algorithms were discovered for useful families of codes. Consequently,
though much progress has been made in the last few years, list
decoding is a subject still in its infancy in terms of its true
potential. In particular, the high level conceptual motivation for
list decoding is that it will enable communication at rates close to
the channel's ``capacity'' even when the noise is adversarial (instead
of obeying an assumed probabilistic model). The codes needed for such
a result are, however, not explicitly known currently. One of the
central goals of this project is to make progress towards the
construction of such codes and the associated list decoding
algorithms.

BROAD IMPACTS: The project will attempt to provide new tools and
techniques for the study of codes that involve a rare interplay
between algebra, combinatorics, and probability. It will try to
enhance our understanding of the fundamental limits of noiseless
communication possible on various noisy channels, as well as push the
rate of usage of transmission channels in practice much closer to
their true potential even in the face of adversarially effected
errors. Due to the great diversity in the results that it aims to
obtain, the research will enable bringing the different communities
that work on coding theory closer together, and more widely expound
the merits of the asymptotic complexity based approach pioneered by
theoretical computer science. Lecture notes from the offerings of the
courses developed in the educational component will be made freely
available on the web, and will eventually be embellished into a
monograph on coding theory with a focus on computational complexity
that is currently lacking in the standard texts.